The Paradox of Proportional Thinking

Many every day and complex tasks require using quantities and amounts, from doubling a recipe to financial or medical decisions that may have life-long impacts. Sometimes, children and adults struggle with using proportional information, demonstrating learning difficulties and systematic errors in decision making. In other cases, however, using proportional information is relatively easy and intuitive. Current research in cognitive science cannot explain this disconnect. This project investigates the fundamental cognitive mechanisms that support reasoning about proportional quantities and when those cognitive mechanisms lead to errors. Understanding these mechanisms has wide ranging implications for education, decision making, and fundamental research in cognitive science by providing leverage points for improving human cognition and maximizing reasoning and decision making in a range of contexts. The project will further advance open science through public release of data and code and will support the development of future STEM professionals by training undergraduate and graduate students in cognitive science.

This cognitive project makes use of a specific type of error that is frequent for both young children and adults alike: using the absolute quantities involved in a ratio or proportion, while ignoring the ratio relation between the quantities. The research team presents child and adult participants with decision-making experiments, where the quantitative information in the decision scenario is systematically varied in terms of the sizes of the quantities involved, the perceptual discriminability of the quantities, and the visual or verbal structure of the decision-making context. Data analysis uses advanced mathematical modeling approaches to test specific predictions about how varying the quantitative information leads to differences in the inferred strategies people use and latent components of their cognitive processes. By using carefully designed behavioral experiments, advanced mathematical models, and both child and adult populations, the project provides new fundamental insight into the cognitive mechanisms that support quantitative reasoning capacities.